Diffusion in MultiDimensional Systems

9505621 Lichtenberg The research concerns the theoretical and numerical study of diffusion in systems with many degrees of freedom. The systems to be studied are weakly coupled mappings with the uncoupled mappings being periodic in the action space, and coupled oscillator chains. Local diffusion, averaged over action space can be used to calculate the global diffusion properties of the coupled system. The diffusion along stochastic resonance layers is known as Arnold diffusion. This diffusion can be calculated within a three-resonance model, when the system parameters can be appropriately controlled. Fundamental questions such as the relationship to upper bounds on the diffusion, and to energy equipartition will be addressed. The effect of the number of degrees of freedom and the strength of the coupling parameter will be studied. Comparisons of analytic approximations to the numerical results should allow an analytic formalism to be developed that can be extended beyond the range of numerical analysis. ***